ACT/SGER: Intelligent Extraction of Information from Graphs and High Dimensional Data

AST-0442015
Green

The emergence of powerful new mathematical techniques motivates the need for training a new generation in the many challenges relevant to national security. This award supports a three-week summer school to be held in 2005 at the Institute for Pure and Applied Mathematics (IPAM) at the University of California-Los Angeles. Leading experts will lecture on the techniques of interpreting data from images, high dimensional geometric structures, and graphs, and approximately half of the program will be devoted to high dimensional data analysis. Main themes will include graph mining, relational data mining, and social networks analysis. IPAM, a national institute with an intrinsically interdisciplinary mission to connect mathematicians, scientists, and engineers, is well suited to run such a program, designed to integrate cutting-edge research with workforce development. With roughly 200 participants each week, including students, postdocs, faculty, industry, and intelligence community staff, there will be a broad range of impacts, including training in the mathematical challenges facing the intelligence community, and the acquisition of important professional contacts.

This award is supported jointly by the NSF and the Intelligence Community. The Approaches to Combat Terrorism Program in the Directorate for Mathematical and Physical Sciences supports new concepts in basic research and workforce development with the potential to contribute to national security.